Precision measurements with polarized atoms

This precision measurement project employs spin-polarized gases to address fundamental questions of particle physics. Specifically the project will focus on the completion of a test of CPT (Charge, Parity, and Time Reversal) symmetry and Lorentz invariance using a dual magnetometer made of potassium and helium-3 placed on a rotating platform. This experiment probes physics beyond the Standard Model of particle physics. A second experiment using this dual magnetometer will search for nuclear spin-dependent forces. A further experiment, using a dual magnetometer made of cesium and xenon-129 will be used to search for a permanent electron and nuclear electric dipole moments (EDMs). A finite EDM would be a signature of CP (Charge and Parity) violation beyond the Standard Model. Additionally, new magnetometery techniques based on spin-exchange relaxation free (SERF) alakli-metal vapor will be developed with a goal of achieving field sensitivity an order of magnitude higher than the best magnetic field sensitivity available today. The broader impact of this project includes development of new techniques of ultra-sensitive magnetometery that can be used for brain imaging, geophysics, explosive detection and inertial navigation. In addition it will promote science education at all levels from K-12 to post-doctoral.